Radiometry of Outer Solar System Bodies

9801835 Jewitt Dr. David Jewitt will carry out submillimeter wavelength and optical observations of outer Solar System objects to produce a unique data set leading to relatively model-independent estimates of the albedos and diameters of the objects. Dr. Jewitt will use a bolometer array on the James Clerk Maxwell telescope on Mauna Kea to obtain imaging radiometry of Kuiper Belt Objects, Centaurs, Trojans of Jupiter, Jupiter satellites, and comets. He will also obtain simultaneous visible wavelength observations using the University of Hawaii 88-inch telescope. The comets will be observed to constrain thermal emission from the nucleus, to measure the coma dust mass, and to measure the spatial and spectral properties of emission. ***